Geometry of Moduli Spaces and Topology of Varieties

This project studies geometric structures on moduli spaces. The recent
theorem of the investigators and Allcock that the moduli space of stable
cubic surfaces is complex hyperbolic suggests that complex hyperbolic
structures on moduli spaces are more common than previously expected. The
project will develop the complex hyperbolic geometry of the moduli spaces of
stable del Pezzo surfaces and of stable cubic threefolds. The consequences
of this geometry to the topology of these spaces will be studied. It is
expected that the moduli spaces of smooth del Pezzo surfaces and smooth cubic
threefolds are Eilenberg-MacLane spaces, and that their fundamental groups
are not linear groups, perhaps not even residually finite groups. The real
hyperbolic geometry of the real points of these spaces, and the relation to
the real algebraic geometry of del Pezzo surfaces and cubic threefolds, will
also be developed. Connections with symplectic geometry and automorphic
forms are also expected.

The general area of research concerns the study of spaces known as moduli
spaces. The central idea is that a collection of geometric objects has
itself its own geometry. This new geometry is called the moduli space of the
original objects. There is a rich interplay between the geometry of the
original objects and the geometry of the moduli space, for example the
symmetries of one reflect themselves in the symmetries of the other. The
simplest example would be the shapes of triangles in the plane: each shape is
determined by the ratios of the sides, the moduli space is the collection of
these ratios, a triangle in the plane with its own geometry. This simple
example leads quickly to very intricate ones: one could take more
complicated polygons or polyhedra. Or one could reduce the study of shapes
of lattices in the plane (thus flat tori, thus elliptic curves, thus cubic
curves over the complex numbers) to this example. Algebraic geometry gives
many interesting examples of moduli spaces whose geometry is very actively
studied.